SBIR Phase II: High-Performance, Environmentally Friendly Polymer Systems for Paints and Coatings

The broader impact/commercial potential of this Small Business Innovation Research Phase II project is to provide the paint and coatings industry with new high-performance, cost-competitive polymer/resin systems that reduce solvent emissions and use of petrochemicals. In addition, these new polymer/resin systems enable one-component, ambient-cure coatings to be produced. This means that highly protective coatings can be produced without the need for mixing multiple components together prior to application or applying heat or light to cure the coatings. The one-component, ambient-cure features of these polymer/resin systems largely eliminate waste and energy costs associated with coating application and lend themselves to the production of paints and coatings that can be applied by the average person. Compared to the current state-of-the-art in one-component, ambient-cured resins, these new polymer/resin systems provide dramatically shorter drying times, dramatically better chemical resistance, and much higher film hardness, while exhibiting excellent impact resistance and flexibility. The highly desirable properties of these new cost-competitive polymer/resin systems will enable commercial success, while their low solvent emissions and high renewable content will reduce impact on the environment.

The objectives of this Phase II research project are to: 1) further optimize the polymer/resin systems to produce compositions that minimize solvent content and maximize performance, while meeting the cost constraints of the market; 2) put in place a pilot-line to provide potential customers with adequate sample sizes to enable their own evaluation of potential products, 3) generate weathering, corrosion, and storage/shelf stability data to further understand the application potential of optimized polymer/resin systems; and 4) optimize the polymer/resin production process to minimize cost and minimize production waste. By meeting these objectives, the Phase II project will result in the generation of new polymer/resin systems that will enable the development and commercialization of new paints and coatings that are one-component, ambient-cured, low in solvent content that exhibit exceptional properties, while being primarily based on renewable materials. Optimized polymer/resin systems will be provided to potential customers for their own internal evaluation. If necessary, feedback from customer evaluations will be used to modify polymer/resin system composition to meet customer needs. By the end of the Phase II project, the technology will be ready to proceed to manufacturing scale-up and product commercialization.